Groundwork for a Practical Implementation of Knowledge Assesment techniques... (SGER)

This project is to lay the groundwork for a practical implementation of the knowledge assessment techniques, developed by the PI and his collaborators, in some selected schools in Orange County California. This involves gathering a team of collaborators, including teachers, securing the appropriate physical conditions, and beginning the construction of the pedagogical materials. The proposed work is broken down into five phases: 1. contact with local elementary, junior, and senior high schools; 2. assemble the team of researchers, including the PI's and 4 expert teachers; 3. selection of a large collection of items to form the domain of the knowledge structures, and covering grades 1-12; 4. analyze the selected items for conceptual content and skills for mastery; 5. use the QUERY routine to make a first pass at building the knowledge structures, using the teachers as subjects;